Planning Grant for Infrastructure in Technology, Engineering, Mathematics, and Science (ITEMS) at Lawson State Community College (LSCC)

The Planning Grant for Infrastructure in Technology, Engineering, Mathematics, and Sciences (ITEMS) will enable Lawson State Community College (LSCC) to assess the current status of its science, technology, engineering and mathematics (STEM) infrastructure; provide the institution the opportunity to identify and describe the challenges and barriers to SMET infrastructure development; and, develop a plan of action to engage more community college students in STEM fields.

This planning grant will lead the way for a more focused effort designed to fill
the STEM infrastructure gaps at LSCC and help prepare proficient STEM professionals for the current and future workforce. Proposed efforts involve partnerships with business and industry.